Revision and Cladistic Analysis of the World Genera of the Family Hemerobiidae (Insecta: Neuroptera)

This project will allow publication of a systematic analysis of a group of lacewing insects, the research for which was previously funded by NSF. This study represents one of the few analyses of this group of insects and the publication of its results will be useful to other systematists, to ecologists and to agricultural applications.